Water Purification by Electron Irradiation

This is an award to provide renewed support for completion of a project initiated under NSF Grant No. 88-07774 to investigate a novel concept for decontamination of water that contains organic pollutants. Prior work had indicated that in the presence of polyethylene oxide, decomposition products of irradiation were scavenged from solution suggesting that free radical species formed during irradiation were coupled to radical sites formed on the polymer. The work to be conducted will concentrate on the dose-rate effect of electron beam radiation to determine whether the observed coupling of free radicals formed during radiation is proportional to their concentration which in turn is proportional to dose-rate. The investigator plans to modify the electron-beam accelerator used in prior work to allow a ten-fold increase in dose rate and plans to use a pulsed linear accelerator made available for his use in MIT's Plasma Fusion Laboratory to achieve dose rates several orders of magnitude larger than possible by use of the Van de Graaff accelerator previously used in his research. The presence of organic contaminants in water is a problem of considerable significance as it relates to usefulness of water for municipal and industrial purposes. This research on a method for destruction of these contaminants by use of ionizing radiation is expected to provide guidance for its potential use in engineering design of processes and systems to decontaminate water and wastewater.